Undergraduate Computer Security Course Enhancment

Computer Science (31)

This project develops innovative learning materials for undergraduate courses in
different domain areas, namely, i) security in general computing applications, ii) information security and the underlying enabling technology of cryptography, iii) hardening of operating systems, system vulnerabilities and safe system administration, and iv) security and intrusion detection in networks and the Internet. The project uses WebCT, Tegrity (for capturing, storing and indexing class presentations), and the Florida Engineering Education Delivery System (for distance learning) to provide "Any Time, Any Place" education to students.

The project is developed using a modular curriculum with spiral feedback. The learning materials are designed in a flexible way so that they can be synthesized suitably to be used in the four courses at various levels of detail and for students of different backgrounds. The learning materials include a rich set of laboratory exercises and projects to enhance the subject matter of the four courses and to assist students in learning the emerging set of new security techniques and skills needed in today's workforce. The subject modules are accompanied by a pool of questions to support active learning assignments and an extensive set of acronyms and a glossary to facilitate student learning. The development of the learning materials is enhanced by using and refining methods derived from the existing knowledge base on undergraduate security education and from the resources available from public course repositories.